High Order Reconstruction Using Spectral Methods

The investigators develop tools and techniques to facilitate the accurate
reconstruction of spectral data from compressed images. Such reconstruction
typically aims at recreating gray-scale functions from their Fourier or
spectral coefficients, and necessarily requires both precise information
of the location of the jump discontinuities of the images, as well
as an appropriate conversion, usually via projection, so that the image
can be viewed in the regions of smoothness. Current techniques for edge
detection and projection reconstruction are somewhat successful in avoiding
Gibbs oscillations without compromising the integrity of the the images
around the edges (i.e. smearing). They also can retrieve information of small
scale features which arise in many scientific applications. However, the
success is seemingly function dependent, and it is difficult to choose
parameters that are robust to be effective in all cases, especially
when noise is present in the given data fields. Furthermore, they are
difficult to extend to higher dimensions. The investigators study new
ways to improve both edge detection and projection methods and ultimately
create an automated robust, user-friendly, computationally efficient, and
inherently multi-dimensional image reconstruction method. The study tests
the resulting procedures against current image reconstruction methods on a
range of applications.

Image reconstruction is of critical importance in many scientific fields.
The development of high order reconstruction techniques requires both
mathematical rigor to prove theoretical results and computational
robustness to ensure practical usage. The proposed activities address
how to obtain images efficiently and with high accuracy when small scale
features are of extreme interest in an increasingly image--oriented society.
These methods can, for example, enhance the diagnostic ability in medical
imaging applications. They can also be used to better identify the small
scale features in solar activity such as those in connection with Lockheed
Martin's Solar Imaging Suite. This research is also useful for weather
forecasting models, earthquake and tsunami prediction, and any other
fields in which visualization is critical. Finally, this study stands to
significantly enhance the ability to compress data, as it it will be
possible to optimize the reconstruction parameters when particular
compression requirements are proposed.